Personal Communication Services/Wireless Networks: European Survey and Basic Research

9401893 Schwartz This project is to carry out a survey of wireless networking in Europe. The principal investigator will carry this out while temporarily based at Imperial College, London. The results will be published in a journal and will be available to the entire community. In addition, the handling of multimedia traffic in wireless networks to high-speed "wired" ATM network stressing network management and control issues will be treated by the principal investigator and his collaborators a t Imperial College. ***